Viscoelastic and Surfactant Effects on the Deformation, Breakup and Coalescence of Drops in Flow

Abstract CTS-0206666

It is proposed to carry out experimental study to understand the processes of drop deformation, breakup, and coalescence in flows of highly viscous or viscoelastic liquids. More specifically, the role of high MW surfactant known as the compatibilizer on these processes will be examined. Experiments will be carried out in miniaturized computer controlled four-roll mills developed and constructed by the PI during the previous Grant period. Motions and deformations of small drops 10-100 microns in diameter will be observed and recorded by a microvideo system.